Science Field School Project for Alaskan North Slope Pre- College Youth

The University of Alaska-Fairbanks will work with schools across the North Slope of Alaska to provide 30 target youth in grades eight through twelve with science field school experiences during the summer of 1988. Each experience will be offered in conjunction with an agency or organization which will be conducting scientific research on the Alaskan North Slope. Students will travel from their homes to actual research sites where they will become involved in research methods and scientific discovery with the guidance and support of field scientists. Activities will include technological studies in marine science, archaeological artifact analysis, soil core sample analysis, wildlife census counts, land use surveys and caribou route mapping. Students will be exposed to various career opportunities related to the research projects in which they are involved.